Immunoassays for Identification of Blood Residues on Archeological Samples

The recent discovery that traces of blood can be identified on ancient stone implements has opened a new area of archaeological inquiry. It has allowed archaeologists to determine the function of specific kinds of stone tools (a subject of continuing debate) and in some instances to identify the actual species. A number of analytic techniques have been tried but all have drawbacks. In preliminary work, Dr. Anderson has demonstrated the potential of nitrocellulose-binding enzyme immunoassay (EIA). He will now generate three groups of species specific antibodies and apply them as a test case to archaeological materials from two sites. If successful, this will permit the development of additional antibodies and their application, in a routine manner, to archaeological materials.